Faculty And Curriculum Enhancement Project

Statement of Objectives. The Fort Berthold Community College Technology and
Instruction Enhancement Project is proposed to increase the numbers and persistence of
American Indian SMET majors and potential majors

- The technology infrastructure of the college will be strengthened by expanded band width
and high tech access for students, faculty and staff.
- The SMET curriculum will integrate constructivist methods and technology applications
to improve SMET student learning outcomes and persistence rates.
- The college faculty and staff will build teaching and learning capacities through
constructivist methodologies and techniques and technology applications.
- American Indian SMET students persistence will be increased by 10% per year through a
student retention model called Family Based Education.
- SMET students will have expanded internships and community service placements,
workforce placement and transfer opportunities through formal community outreach
relationships.

Methods to be Employed. The Technology and Instruction Enhancement Project of
Fort Berthold Community College will focus on the recruitment and retention of American
Indian Students toward graduation and transfer or workforce placement. First, the
technology infrastructure will be expanded by improving the band width to speed up and
broaden technology capacities. The student access to high tech equipment and applications
will include the additionof high tech laboratories for student learning Web-conferencing
capacities will be installed in theMentor Sites in three remote satellite campus locations.
Second, constructivist teaching/learning methods and techniques that heightened student
experiential learning and active discovery based activity; and increased technology
applications will be integrated across the curriculum. The computer science networking
program will deliver professional certificationsand two full time faculty members will
make this a technology centerpiece in the curriculum.

Third, the curriculum and college services will be vastly improved through faculty and
staff development opportunities in constructivist teaching/learning methods and technology
applications. Faculty development opportunities will include individual professional
conferences and mini-grants for research projects that involve SMET student interns as
assistants. Fourth, to improve student retention rates, the student services division will
acquire a full time retention officer to implement an aggressive, pro-active retention
strategy called the Family Based Education Model. Pressure points in the family based
American Indian students lives are identified and through a team analysis, referral and
intervention strategies are prescribed to each student itat-risk.ln Community outreach
will expand SMET student opportunities for internship and community service placements.

Project Outcomes. The project outcome will be increased American Indian SMET
student retention rates, 10% increases annually during the project period. The technology
infrastructure will advance according to campus-wide plans. The faculty and staff will have
long term capacities and skills reflecting constructivist methods and technology
applications. The Family Based Education Model will have intervened with at-risk SMET
students, to heighten retention rates. Broad-based community relationships will support
SMET majors and graduates and the college as an educational institution.